Integrating Geographic Information Systems into the Wildlife Technology Program

Geographic Information Systems (GIS) are sophisticated computer systems for analyzing, storing and displaying diverse spatial and non-spatial data. They are ideally suited for analyzing complex interrelationships among natural resources and for producing outputs, including maps, used in management. This two-year campus is purchasing three complete GIS units for their Wildlife Technology program. These units enhance instruction and introduce students to GIS as an integral part of natural resource management. The systems allow a greater variety of data to be collected, analyzed, and mapped. Management decisions can more easily be made and their impacts compared on a variety of biotic and abiotic natural resources. As GIS systems are increasingly being used in resource management agencies, this instruction makes the graduates of the program more knowledgeable about such systems and therefore more competitive when they graduate. The school will contribute an amount equal to the award.